Quantitative Aspects of Prey Chemical Defenses

P.I. : HAY, MARK E. Proposal #: 95-29784 PROPOSAL ABSTRACT Understanding prey defenses is fundamental to a wide range of ecological and evolutionary topics within marine communities. For example, investigations of differences among species in secondary metabolites, palatability, and susceptibility to consumers have provided insights into factors driving specialization, affecting distribution and community organization, and determining feeding patterns and digestive efficiencies. The proposed research will focus on within- individual differences and the plasticity of individuals to respond to perturbations in their environments.